Support for IEEE Conference on Neural Information ProcessingSystems - Natural & Synthetic - November 1987

Neural information processing is receiving growing attention particularly because of its suitability for handling massive amounts of data extremely efficiently, for its fault tolerant characteristics, its massively parallel architecture, and the new fundamental approaches and controversy which it has stimulated. The proposed workshop brings together experts in this field to discuss the many diverse aspects of potential importance.